SENSORS: An Implantable Joint-Load Sensor, Transmitter and a Portable Reader

0427483
Szivek
This project will develop and utilize an integrated sub-miniature implantable strain measurement and transmission system, which can easily be placed into a scaffold as a part of a joint resurfacing procedure. This will be done by developing, fabricating, and testing a subminiature telemetry unit with integrated sensors, which will be calibrated to provide load and pressure measurements.